STTR Phase I: Modulation-Assisted Deep Hole Drilling of Micro/Meso-Scale Biomedical Components

This Small Business Technology Transfer (STTR) Phase I project will develop an innovative application for modulation-assisted machining (MAM) technique to increase the productivity of deep-hole drilling of micro/meso-scale features in the production of high-performance biomedical components. A prototype process will be demonstrated thayt can be easily achieved on aexisting computer-controll;ed machines. In this process, a controlled, low-frequencty vibration (modulation) is superimposed onto the machining process, creating a series of discrete cutting events that are controlled with remarkable effectiveness by the modulation parameters, leading to easy chip removal.

The process will also enhance the effectiveness of lubrication, enabling the machining to be performed with minimal use of cutting fluids. When implemented in the appropriate framework, the proposed technology will result in a class of highly efficient, clean machining processes that will impact applications above and beyond the biomedical component manufacturing, to aerospace and automotive sectors. The anticipated reduction in the use of cutting fluids will make the process environmentally friendly. The partnership with the University will provide students excellent opportunity for education and training.